Purification and Cloning of Elicitor Binding Protein(s) from Soybean

The long term goal of this research is to understand how plant cells perceive and respond to extracellular signals. The system being studied is the induction of plant defense responses, phytoalexin accumulation in soybean (Glycine max) induced by oligosaccharides (elicitors) originating from the mycelial wall of a phytopathogenic fungus, Phytophthora megasperma f. sp. glycinea. Considerable information has been obtained about the structure of an elicitor (a branched hepta-beta-glucoside) derived from mycelial wall glucans and about the identity and regulation of elicitor- induced genes encoding enzymes required for the biosynthesis of the phytoalexins. However, little is known about the mechanisms by which plant cells perceive the elicitor, or how that signal is transmitted to the cell nucleus to initiate changes in gene expression. The research described in this proposal focuses on the first step in the elicitor-stimulated signal transduction pathway, that is, the recognition of a hepta-beta-glucoside elicitor by a plasma-membrane localized receptor. The proposed research has three major goals. The first goal is the identification, purification, and characterization of hepta-beta-glucoside elicitor binding protein(s) (EBPs) from soybean root microsomal membranes. Evidence has already been obtained that a single class of specific, high-affinity (dissociation constant of 1 nM) EBPs exist in soybean root microsomes originating from the plasma membrane. These EBPs have been successfully solubilized from the membranes using detergents, and the solubilized EBPs retain their high affinity and specificity for the elicitor. The number and identity of the proteins that have hepta-beta-glucoside elicitor binding activity will be established by photo-affinity labeling. The EBPs will be purified by affinity chromatography and antibodies against the binding protein(s) will be prepared. The second goal is the isolation and characterization of cDNA sequences that encode EBPs. Clones carrying EPB sequences will be identified by screening cDNA expression libraries with radiolabeled hepta-beta-glucoside elicitor. Alternatively, partial protein sequences obtained from the purified EBPs will be used to prepare synthetic nucleic acid probes with which to screen cDNA libraries. These clones and their derived sequences will be used to identify possible structural and functional domains in the EBPs that might relate to their role in signal transduction. The third goal, which will be undertaken if time permits, is to demonstrate that the EBPs identified in these studies are physiological receptor(s) for the elicitor. Sequence comparisons and expression of truncated EBP genes will be used to identify and delineate functional domains of the EBPs. Transgenic expression of wild-type and mutant EBPs in plant cells that do not contain endogenous EBPs, tissue-specific localization of EBPs in relation to localization of plant defense responses, and determination of the effect of anti-sense EPB sequences on the expression of hepta-beta-glucoside-induced plant defense responses will be undertaken to demonstrate the physiological significance of the EBPs in elicitor-mediated signal transduction. %%% The long term goal of this research is to understand how plant cells perceive and respond to extracellular signals. The system being studied is the induction of a defense response in soybean plants. The defense response is triggered by exposure of the plant to certain carbohydrates (elicitors) which originate from the filament wall of a pathogenic fungus which specifically infects the soybean. In response to the elicitors the soybean plant synthesizes and accumulates protective chemicals known as phytoalexins. The more immediate goals of this project are to identify and characterize the plant receptors for the elicitors. Detailed characterization of the elicitor receptor will be an important step toward understanding of the signal transduction pathway by which plants detect and respond to pathogens.